Support of the Office of Field Project Activities

ATM-9413072 Richard A. Anthes The UCAR Office of Field Project Support (OFPS) provides a UCAR/NSF focal point for the coordination, planning and implementation of NSF, interagency, and international field projects. Capabilities are provided in areas of project management and coordination, experiment design, operations control and communications, field logistics, and data management. The latter includes all facets of data collection, processing, archival, and distribution. OFPS also acts as a center for the collection and dissemination of information on the activities of national and international field projects. ***